REU Site in Theoretical Atomic, Molecular and Optical Physics

The "Research Experiences for Undergraduates" Site will continue at the University of New Mexico-Los Alamos campus. This Site focuses on theoretical studies and research in atomic, molecular, and optical physics, using the computing facilities of Los Alamos National Laboratory. Students are recruited and selected nationally.